Modal Operators and Multivalued Logics

A variety of theoretical applications of artificial intelligence make use of modal operators. A modal operator is often thought as a function that takes a well.formed formula as an argument and is assigned a semantics. This project is an investigation into the theoretical and computational properties of a new formalization of modal operators. This formalization views a modal operator as consisting of both a syntactic and semantic component. The aim of this research is to examine how this new formalization would work under a number of different modal operators and to construct a general purpose implementation of this formulation that allows us to look at specific examples involving the modal operators arising in the analysis of belief, knowledge, casuality and simple temporal reasoning.